A Functional Genomics Approach for Evaluating Protein Production Pathways

The long term goal of this SGER Proposal is to investigate restrictions to protein synthesis in cells and to develop enhanced heterologous protein production systems. This will be accomplished by studying the protein output of different transfected cell types in living fruit flies. Green fluorescent protein (GFP) will be the construct marker and the production will be directly observed by insect organ fluorescence. IL-2, the product protein, will be fused to the GFP using a histidine tag to facilitate protein isolation, and an enzymatic cleavage site incorporated in the system along with an appropriate promoter. Various promoters will be used to drive expression in different tissues. The work should lead to high protein-producing cell lines and/or select producing strains of Drosophila and information on the factors controlling protein production, e.g., promoters, chaperones and foldases, etc.